Dynamic Multirate Systems for Image and Video Compression

Smith This research addresses the general problem of coding images and video signals at low bit rates using a multirate analysis/synthesis filter bank (or subband coding) framework. Thus far, analysis/synthesis filter banks for subband image/video coding have been static with respect to the input. This research explores new classes of multirate filter banks that: 1. dynamically change with the input signal to enable higher quality representations; and 2. simultaneously preserve all of the aliasing cancellation and high quality reconstruction properties achievable with conventional filter banks. New methods for quantization and coding based on image modeling and vector quantization are also being studied. These are intended to operate in synchrony with the adaptive multirate filter banks. While this work focuses primarily on achieving high quality compression at low bit rates, extensions of these concepts to higher rates are also being considered.